Parametricity, Abstraction and Objects

9804087 Data abstraction is of central concern in program design while ``parametricity'' is a mathematical formalization of this concept. Using parametricity, one can argue that two program modules that export types and operations are equivalent as long as the behavior observable by client programs is the same. In this project, Prof. Uday Reddy addresses key issues of parametricity theory in joint research with Prof. Peter O'Hearn at Queen Mary and Westfield, London. The issues addressed include finding an abstract framework for parametricity that encompasses various programming language phenomena and their mathematical models, integrating parametricity with subtyping type systems, and the application of these results for modeling object-oriented programming with mutable state. The research spans theoretical and practical issues, ranging from abstract categorical frameworks to type systems and practical reasoning principles. The issues addressed are of vital importance for integrating parametricity with the vast body of programming theory developed over the years. Prof. O'Hearn's expertise in parametricity theory will complement Reddy's work in the study of data abstraction aspects of local variables. This collaboration enhances their research effectiveness in addressing issues of mutual interest.***